SBIR Phase II: Three-Dimensional Atom Probe Imaging for Nano-Biotechnology

This Small Business Innovation Research Phase II project will develop the Local Electrode Atom Probe (LEAP) to rapidly provide three-dimensional atomic-scale imaging and elemental identification of nano-biotechnology devices. Structural characterization of nano-biotechnology devices is currently problematic because available microscopy and analytical techniques have substantial limitations in quantitative imaging at the atomic-scale. Moreover, current microscopy techniques cannot adequately resolve three-dimensional biomacromolecules, which are intrinsic to nano-biotechnology devices. Until better analytical instrumentation is developed, researchers will "fly blind" as they develop more complex nano-biotechnology devices. The overall goal of this Phase II project is to rapidly analyze the three-dimensional atomic-scale structure and elemental composition of biological and organic molecules on nano-biotechnology devices. The focus will be on developing technologies to analyze commercial specimens using LEAP technology, and to initiate commercialization and marketing of this technology to academic and industrial researchers.
The commercial application of this project will be in the area of bioanalytical instrumentation and nano-biotechnology devices.